University of New Mexico for Micro-Engineered Ceramics Ceramics Evaluation

9418364 Kroenke This project provides funding for an evaluator to study the industry/university interactions occurring in the University of New Mexico's Industry/University Cooperative Research Center for Micro- Engineered Ceramics. The Center continues to meet the renewal criteria to remain in the Industry/University Cooperative Research Centers Program. The evaluator has the experience necessary to perform the study. The Program Manager recommends Dr. William Kroenke be awarded $24,000 for three years for this evaluation study.